Expanding an Existing Precollege Science and Technology Career Program

Carnegie Mellon University will initiate a six-week, residential Young Scholars project in Engineering, Biology and Biotechnology which will offer science enrichment activities for 50 precollege students entering grades 10-12. The Young Scholars project will be an extension of an ongoing, successful course in Carnegie Mellon's Summer precollege program called Careers in Applied Science and Technology (CAST). The current CAST program includes a variety of laboratory visits and presentations, a Science/Technology/Society workshop, and a science writing workshop, leading up to the production of a magazine for use in middle school classrooms. The expanded program will add research tracks in three major NSF Centers on campus and replace most of the science-writing activity with group laboratory projects.